Elliptic and Parabolic Problems in General Relativity

ABSTRACT DMS - 0205545.

A number of problems of elliptic and parabolic type in
general relativity will be studied. The investigator
will model rotating stars by a self-gravitating
perfect fluid rigidly rotating on its own axis using a
perturbation method. The perturbation parameter is the
ratio of the angular velocity to the central density,
allowing rapidly rotating solutions when the density
is sufficiently high. The investigator will work on
the uniqueness of the Kerr black holes, to rule out
multiple black hole configurations, as conjectured by
Roger Penrose. A new approach is proposed consisting
of the investigation of the relation between
uniqueness theorems for black holes in equilibrium and
Penrose-type inequalities. The investigator will
continue his work on the connectedness of the space of
initial data for the Einstein vacuum equations,
extending results obtained in the context of
quasi-convex foliations, foliations with leaves of
positive Gauss and mean curvature. The investigator
will work, in collaboration with Y. Li and A. S.
Tahvildar-Zadeh, on blow-up of wave maps, the
dynamical counterparts of harmonic maps. These maps
have attracted considerable attention by researchers
in nonlinear hyperbolic equations mainly due to their
similarity to the Einstein equations. The
investigator will also work on the asymptotic behavior
of harmonic maps with prescribed singularities into
Hadamard manifolds.

Mathematical general relativity overlaps three
disciplines: physics, geometry, and nonlinear partial
differential equations. As such, it is an ideal source
of problems whose solutions have the potential to
influence all three of these fields. The problems in
this project fall in this category. For example, the
study of Penrose-type inequalities is of interest both
to mathematical relativists and to geometers studying
spaces of dimension three. Developing a good
mathematical model for dense rapidly rotating stars is
an important goal in astrophysics, for example when
trying to understand pulsars, and would also
contribute new results in perturbation theory.
Understanding wave maps should help the study of other
nonlinear evolution equations governing various
physical phenomena.